Mathematical Sciences: Lattice Theory

This project is concerned with studying the structure of lattices. The principal investigator will do this by making use of a construction due to Alan Day; by using varieties of lattices; and by determining whether every distributive algebraic lattice is the congruence lattice of a lattice. The principal investigator will also study the structure of finitely generated free lattices. Lattices are discrete mathematical objects with a structure reflecting, to some extent, the structure of set theory or logic. This very weak structure means that lattices can be found in many mathematical environments. It also means that problems are easy to state, hard to solve and of a very general nature. The results of this work will impact many areas of mathematics, computer science, the social sciences and business management.